QUANTUM SCATTERING PROCESSES INVOLVING LOW-ENERGY ELECTRONS

This research focuses on two theoretical aspects of electron-molecule collisions; dissociative attachment in small linear and non-linear molecules and vibrational excitation of the hydrogen molecule. The former problem will be treated using density functional methods. The latter problem has been undertaken to resolve a long-standing controversy between the experimentalists performing swarm measurements and those using molecular beams.